Combinatorial Set Theory

Moore's work in infinite combinatorics concerns classification and basis
problems for uncountable structures and their connection with cardinal
exponentiation. On one hand, strong axioms such as the Proper Forcing
Axiom and Woodin's Pmax axiom are invoked to build embeddings and
morphisms between structures such as linear orders and topological
spaces. Since these strong axioms themselves imply that the cardinality
of the real line is the second uncountable cardinal, it is natural to
ask whether the classification theorems which follow from them already
fix the cardinality of the continuum. The research supported by this
grant aims to prove new classification results from these strong axioms,
to better understand the relationship between these classification
results and the value of the continuum, and to improve our understanding
of the strong axioms themselves.

The oldest results in set theory concern the rigorous development of the
"size" of an infinite set. The cardinal numbers provide a linear scale
with which one can measure the number of elements a set has --- also
known as its cardinality. One of the earliest questions in set theory
was Cantor's Continuum Problem: Determine the cardinality of the real
number line. In the 1960s, this problem was shown to be independent of
the usual axioms of mathematics. Still, it is unclear whether some
other compelling mathematical statement, also undecidable, might settle
the Continuum Problem. Moore's research aims to both establish the
independence of new classification results for infinite mathematical
structures and to relate these results to the Continuum Problem.